Collaborative Research: Inference for Statistical Graphics

Since the publication of the NSF landmark report "Visualization in
Scientific Computing" in 1987, computer-aided visualization has been
recognized as one of the most potent tool sets for scientific
discovery. However, discoveries based on data displays are often
criticized because they are not secured by statistical inference. The
team of researchers from Iowa State University, Rice University and
University of Pennsylvania is addressing exactly this issue by
bringing the rigors of statistical inference to visual data
exploration. Statistical inference for plots are cast as comparison of
a plot of the actual data with plots of null data simulated under a
null hypothesis. If the actual plot stands out from a background of
"null plots", it amounts to the rejection of the null hypothesis.
Executing this idea leads to rigorous protocols that can confer proper
statistical significance to visual discoveries. Tools of mathematical
statistics are employed to reduce composite null hypotheses to single
reference distributions: conditioning on a minimal sufficient
statistic, bootstrap plug-ins, and posterior predictive sampling. The
protocols also have the potential to shift the perception of
exploration-based findings in the scientific communities and
dramatically increase the impact that these findings are allowed to
have. The testing protocols will be made accessible with
implementation in the open-source R language.

Data graphics are an essential part of communicating information. But
how reliable is the information that we gather from them? The
investigators will develop a rigorous framework for visual inference
modeled after formal statistical testing. This framework allows the
reader of a graphic to determine whether structure is real or spurious
(is that a man in the moon, or just some rocks?). These protocols have
the potential to shift the perception of exploration-based findings in
the scientific community and dramatically increase the impact of
exploratory work. Some aspects of the protocols are so intuitive that
they can be used for general audiences and integrated in the teaching
of introductory statistics at from grade school to college.